Design Automation for Site Development

The design of site developments, such as commercial buildings or residential subdivisions, integrates the work of architects laying out the site, a number of engineers designing the structures, site grading, storm drainage, and provision of utilities, and review by city officials who must approve the design before issuing a building permit. There is very little automated integration of the work of these individuals in current design practice. As a result, the continual cycle of design, review and redesign is time-consuming, expensive, and produces feasible rather than optimal designs. The proposed research aims at automating the design process through computerized integration of its component activities: a centralized database keyed to a model of the site terrain, visualization of the site in its existing and proposed conditions using an advanced CAD graphics system, more accurate computation of storm drainage over the site using the finite element method, and a design checker incorporating the city's ordinances and rules of good design practice so that the design proceeds along acceptable lines from the beginning. Existing site developments at several locations in the U. S. will be redesigned to show how design can be carried out quicker and more effectiveny with an automated system.